U.S.-China Cooperative Research (Biosciences): Glyceraldehyde-3-P Dehydrogenase Interactions; Fluorescene Studies

This collaborative project between Louise Anderson, University of Illinois at Chicago, and Tang Xiaoyi, Shanghai Institute of Plant Physiology, seeks to continue experiments funded under DCB